U.S.-New Zealand Cooperative Research: Degrees of Oracle Computable Functions

This award will enable collaborative research between Dr. Manuel Lerman of the University of Connecticut and Dr. Rodney Downey of the Victoria University of Wellington, New Zealand. Their research in mathematical logic will focus on the area of recursion theory. They will use the technique of priority argument to study the structural properties of algebraic systems which are defined in terms of the notion of oracle computability. The aim of the project is to gain a better understanding of how information coded by a set is reflected in and can be recovered from algebraic structures. Drs. Lerman and Downey and their associates have a history of productive collaboration. Research in the area of recursion theory will be further enhanced through the "face-to-face" interaction provided under this project.